CAREER: Symbiotic Interfaces to Enable Cooperative Adaptation

Tomorrow's system software must provide efficient resource management across
a range of operating environments, and hence needs to adapt its policies
dynamically to suit its changing environment. Currently such adaptation is
hampered by modular software architectures that prevent informed adaptation
by hiding all implementation details. This proposal advocates a new
approach to building software that enables cooperative adaptation by the use
of symbiotic interfaces. A symbiotic interface extends a system's
application programming interface (API) to incorporate high-level
abstractions designed to both better support the application's needs while
simultaneously giving the system the information it needs to adapt its
policies. A symbiotic interface encapsulates user level semantics to improve
support for the application, and thus improves usability of the
system. Capturing user-level semantics through the interface discloses
information to the system, so it can make informed decisions on how to adapt
to better suit the application's needs. Like symbiotic relationships in
nature, the symbiotic interface allows mutually beneficial cooperation
between the application and system. Professor Steere's educational plan
involves creating advanced courses in systems architecture that focus on
building adaptive and predictable systems, beginning with a survey course on
mobile computing that concludes with a project in building adaptive software.